Synthesis and Structure of Molecular Gold Nanoparticles

This award in the Inorganic, Bioinorganic and Organometallic Chemistry program supports research by Professor Roger D. Kornberg at Stanford University to synthesize monodisperse ("molecular") large gold nanoparticles by a new method that provides remarkably uniform particles and determine their structures by X-ray crystallography and electron microscopy (EM). The structures of mercaptobenzoic acid-protected monolayered-protected clusters (MPCs) will be determined by x-ray diffraction. Crystals of 2 nm-diameter mercaptobenzoic acid-protected MPCs gave diffraction to 5 Angstrom resolution with improved resolution with increased crystal size. Large single crystals of 3 nm-diameter mercaptobenzoic acid-protected MPCs will be grown and their structures determined. The synthesis and structure determination will be extended to other MPCs including stable, water-soluble MPCs with tiopronin, 1-thio-a-D-glucose, and glutathione protecting monolayers. Some possible limitations of X-ray structure analysis may be overcome by cryo-electron-microscopy tomography.

Success in preparing uniform large gold nanoparticles in a range from about 1.5 to 3 nm will impact applications such as heavy atom electron microscopy and nanoelectronics.